Greater Philadelphia Region LSAMP Bridge to the Doctorate (Cohort VI) Project

The Greater Philadelphia Louis Stokes Alliance for Minority Participation Bridge to the Doctorate (BD) Program, under the leadership of Drexel University, is a collaborative effort between the National Science Foundation and institutions of higher education in Delaware, New Jersey and Pennsylvania. The goal of the alliance is to increase the quality and quantity of underrepresented minorities matriculating to completion of the doctoral degree in science, technology, engineering and mathematics fields (STEM) fields. The program at Delaware State University prepares students to meet the challenges of completing doctoral programs of study and for academic careers in higher education. In addition, the program develops leadership skills necessary for success in the STEM workforce nationally and internationally.

Integrating research and education, the BD fellows will be nurtured over two years as a cohorted community that will benefit from a program of academic and personal development activities as well as social support to sustain their commitment and success to the terminal Ph.D. STEM degree. Program activities include linkages to the Delaware Experimental Program To Stimulate Competitive Research (EPSCoR), Dual Degree Graduate Program in Molecular and Cellular Neuroscience, Minority Access to Research Careers (NIH) as well as other NSF-funded research and education projects, including programs that provide mentoring opportunities for undergraduate students.

A total of 12 students from underrepresented minority populations in STEM fields will participate in the program at Delaware State University during the 2009-2010 academic years. Results from this support will broaden the participation of African-Americans, Hispanics, Native Americans, and Pacific-Islanders in the STEM pipeline, U. S. workforce and abroad. Results from rigorous evaluation of the project will add to the body of literature in the recruitment and retention of underrepresented minority students in STEM fields.